U.S.-Italy Cooperative Research: Avian Orientation; Use of Olfactory Cues

This award will support collaborative work between Prof. Charles Walcott of Cornell University and Prof. Floriano Papi of the University of Pisa, Italy. The investigators intend to investigate the roles that geomagnetic and olfactory cues play in avian orientation. It is well-known that homing pigeons can return to their lofts when released hundreds of miles away in unfamiliar territory. While it is generally agreed that they can use the sun or the earth's magnetic field as a compass reference, no agreement has been reached on the sensory basis of their ability to determine their position relative to home. The Italian investigators report that their birds use odors to find their way; however, some experiments in both Germany and the U.S. suggest that pigeons there can orient without olfactory information. It may be that the cues birds use depend on the environment in which they are raised or, perhaps, on their own genetic stock. To examine these hypotheses, the investigators plan to establish a pigeon loft in Florida where the general topography is similar to that of Pisa, Italy, and test whether Italian and U.S. birds will make use of olfactory cues in Florida. If pigeons in different places use different cues for navigation, it means that their navigational system is much more complex than had been thought. It would also suggest that other animals might have similar flexibility in their use of different cues and that some of the differences in bird orientation behavior reported in the literature may reflect environmental differences. In any case, the proposed work should be of great value in helping to resolve the scientific controversy over the role of olfactory cues in the homing orientation of pigeons.